Human Variance and Assessment for Learning Implications for Diverse Learners of STEM, A National Conference

The conference purpose is to stimulate a national conversation concerning the relationships between assessment, teaching and learning that include scholarly research and development of tests; members of city and state boards of education; officials from states and major school systems; policymakers; and representatives of teachers' associations and parents' associations. This conference aims to attract these important professionals has important co-sponsors like the Urban Institute. This national conference flows from the work of the Gordon Commission on the Future of Assessment for Education that addressed the advancement of achievement in STEM disciplines (PRE-K - 12) for students who are underrepresented among high achieving students. This issue of advancement of underrepresented high achieving students has received little concentrated effort and a conference would help in providing greater understanding of this special concern, which includes a student in poverty in complexed family structures.

The conference will attract thought leaders, policy makers, supervisors of practice and scholars of measurement science to be informed of emerging thought and developments and to discuss selected models for the implementation of new ways of generating and utilizing data from education tests. The conference will stimulate national conversation and ultimately a market that demands educational assessments that inform and improve teaching and learning transactions. The conference will be organized around four conceptual and theoretical papers that focus on the knowledge base upon which six concurrent workshops will be based. The four papers are: (1) Human Diversity and Assessment; (2) The Limits of Test Bias and Its Corrections; (3) Towards an Assessment Science Capable of Informing and Improving Learning; and (4) Assessment in the Service of Learning. The workshops will focus on models of pedagogical practice that show promise for informing and improving teaching and learning processes and their outcomes. These issues will be discussed by 11-15 expert presenters who understand student learning and the types of information gleaned from different types of assessments. The attention to URMs and their needs and contexts are prioritized in discussions surrounding measurement science and the integration of assessment. Several important issues that address understanding of student learning, and the relationship between the varieties of information concerning students that can be accessed through assessments are: (1)The importance of the broader and more productive use of educational testing to improve the learning of STEM subject matter and values;(2) Curriculum embedded assessment and the reduction in disparities in achievement by STEM learners from diverse social divisions;(3)Innovative procedures and programs for the use of data concerning learners and teaching and learning transactions in the teaching and learning of STEM with learners who are underrepresented among high achieving STEM learners.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.